Global Mantle Structure from Long-Period Body Waves

This research is to use long-period body wave data to resolve both spherical and aspherical structure in the mantle. The analyses will use differential travel time measurements to constrain large-scale mantle heterogeneity, stacking techniques to image upper mantle discontinuity phases, and synthetic seismogram modeling of waveforms from selected high-quality events.